Downhole Logging for the Cape Roberts Project

Abstract OPP 9418429 This award supports continuous-core and downhole logging of the four planned Cape Roberts Project scientific drill holes. The goal of the Project is to study the Early Tertiary and Cretaceous record of climate, tectonics, and sea level change, and to determine the time of onset of Antarctic glaciation. Geophysical well logs will be converted into continuous records of variation which can be interpreted as indicating variations in mineralogy and porosity. The detailed one-dimensional records at each hole will be integrated with available high resolution seismic data to produce a two-dimensional interpretation of the stratigraphy. This geophysical logging program is an essential component of basic characterization of the drill site and is a fundamental part of the effort to produce a stratigraphic framework for interpretation of other scientific work on the core.